Practical Determination of Force-Free Coronal Magnetic Fields

The nature of the coronal magnetic field is of central importance to the understanding and prediction of solar flares. The coronal magnetic field, however, cannot be measured directly. It is proposed to develop and apply a new method for computing the force-free coronal field from the photospheric magnetic field, as measured by a vector magnetograph. The coronal field is obtained by solving the nonlinear force-free equation (with non-constant alpha). The proposed algorithm employs a novel formulation of the force-free problem in which the field is evolved from a potential field to a force-free field which satisfies the observed boundary data. The field is required to satisfy boundary conditions on the magnetic flux and the normal component of the electric current density at the boundary. It is planned to study the practical considerations involved in the application of the method to necessarily imperfect magnetograph data, using the Stokes Polarimeter and the Imaging Vector Magnetograph at Mees Solar Observatory, University of Hawaii.